Clemson mini-Conference on Combinatorial Optimization

This is a proposal for funding in support of the annual Clemson mini-Conference on Combinatorial Optimization, now in its 16th consecutive year of existence. This day-and-a-half long conference is held every year at Clemson University, Clemson, South Carolina, on a Thursday and Friday, usually sometime during the first two weeks of October. The mini-Conference invites about 12 speakers to give 40-minute talks on their current research. Speakers are chosen equally between the fields of discrete mathematics (including combinatorics, graph theory, operations research and coding theory), and algorithmic computer science (including computation theory, computational
complexity and the design and analysis of algorithms).